U.S.-Taiwan Cooperative Research: Intelligent Control of Batch Chemical Processes

9311390 Joseph This is a three-year cooperative research project proposed by Dr. Babu Joseph, Washington University, and Professor Shi-Shang Jang, National Tsing Hau University. This proposal is to conduct study on the quality control of batch chemical manufacturing processing using artifical intelligence based model predictive controllers. This is an excellent international cooperative project. Dr. Jang in Taiwan will do the experimental work on the batch reactor and generate data, and Dr. Joseph will use the data generated to improve the model prediction for the quality control of batch chemical manufacturing processing. This is a high priority area for NSF. This project is jointly suported by the NSF and the Taiwan National Science Council (NSC), which provides extensive support for laboratory operation and data collection. The modest support from the NSF in this case is extensively leveraged by the NSC.